Atmospheric Dimethyl Sulfide and Sulfur Dioxide Measurements at Baring Head, New Zealand

Measurements of atmospheric dimethyl sulfide (DMS) and sulfur dioxide (SO2) will be made at Baring Head, New Zealand, using a new isotope dilution GC/MS instrument. The scientific goal of this project is to construct a budget for SO2 in the Southern Ocean marine boundary layer. Specifically, atmospheric DMS and SO2 will be measured simultaneously over at least ten diurnal cycles, the DMS to SO2 conversion efficiencies will be determined, as well as the relative magnitude of SO2 loss to clouds, sea salt aerosols and the sea surface. The field data will be interpreted using a photochemical box model. The long term objectives of this project are to investigate the relationship between the photochemical state of the atmosphere and the oxidation rates and pathways of sulfur gases and to improve our understanding of the relationship between sulfur gas precursors and the production and growth of aerosols.